MPWG: Females as Science Tutors (FaST) Enhancing Science Education at the Secondary Level

9353797 Rodriguez Female undergraduates (42), from science, engineering and mathematics (SEM) fields at the University of California, Irvine (UCI), will serve in local high schools as positive role models and laboratory instructors. This activity is part of an effort to increase the representation of women in SEM fields. The project extends a previously successful model program designed to promote interest and academic instruction in these disciplines for underrepresented minorities. The participating local high schools are populated by ethnic groups having historically high attrition rates in secondary and post secondary education and low representation in SEM related occupations. Success in science, engineering and mathematics for women is often dependent upon the internalized interpretation of female roles in society. Additional motivation and training is needed for women to enter the male dominated (SEM) professions. The project will help create a supportive environment for both the high school participants and the female undergraduate mentors. The project also provides critical instructional assistance for secondary laboratory classes. Low ratios of instructors to students (1:35) at the participating high schools contribute to the inability to understand the basic scientific principles taught in the classroom. Female undergraduates receive positive reinforcement in their science instructor/mentor roles, which give them added motivation to complete the course work necessary for careers in SEM. The participating undergraduates will receive a $2,000 stipend to help them complete their course work. ***